Ultrasound-Based Osteoporosis Detection

9700490 Pedersen Osteoporosis is the most common systemic bone disease which causes an increased fracture risk in especially older women. It is a debilitating and costly disease which a decade ago was estimated to cost to the US society $6 - $7 billion. Osteoporosis affects primarily the trabecular bone which is the mesh-like structure in the center of a bone. A clinically accepted measure of the degree of osteoporosis is the bone mass density (BMD), and so all instruments in clinical use attempt to estimate BMD. The dual-energy x-ray absorptiometry (DEXA) technique is considered the most accurate technique today, but an ultrasound transmission technique, referred to as broadband ultrasound attenuation (BUA), is also widely used. Among the limitations of the current techniques are: i) difficulty in diagnosing osteoporosis in its early stages, ii) inability to carry out localized measurements, and iii) only modest correlation with fracture risk. The goal of the proposed research is to generate preliminary data based on a new ultrasound system which will utilize both transmission and reflection measurements. The motivation for the research is to develop a technique which can provide information about both the architecture of the trabecular bone and BMD and thus be more sensitive to changes in the trabecular bone structure and to changes in bone mass density, i.e., to the degree of osteoporosis, than existing techniques. The attractiveness of ultrasound for assessing osteoporosis lies in the relatively low cost, its portability and the absence of ionizing radiation. The measurements will utilize cow bone samples chosen to cover a range of bone mass densities corresponding to the densities from normal to osteoporotic bone in humans. Several ultrasound parameters will be measured, such as sound speed, absorption, and scattering in different directions. The ultrasound results will be compared to results obtained with DEXA measurements which will be carrie d out at Univ. of Massachusetts Medical Center. ***